U.S.-Cameroon Planning Visit: The Influence of River Discharge on the Coastal Cameroon Ecosystem

Drs. Arnoldo Valle-Levinson and Larry Atkinson, of the Center for Coastal Physical Oceanography at Old Dominion University, will visit Cameroon to meet with Dr. Charles Gabche, of the Research Centre for Fisheries and Oceanography, to finalize plans for a proposed research activity to study the region of freshwater influence off the Cameroon coast. The proposed project is to be an international effort involving research institutions in the United States, Cameroon, the UK, and Belgium.